Student Travel Support for the Eighth Symposium on Networked Systems Design and Implementation (NSDI)

This award assists approximately 20 US-based graduate students to travel and attend the Eighth Symposium on Networked Systems Design and Implementation (NSDI-2011), which is to be held in Boston, MA on March 30, 2011. This support enables the participation of students who would otherwise be unable to attend NSDI-2011.